Two-Component Lubricant/Coolant Fluids for High-Speed Machining

The project involves the development of a new class of metal- cutting fluids with higher thermal capacities than existing fluids. These two-component fluids consist of micron-sized particles of microencapsulated phase-change materials in a standard carrier oil. Phase I efforts showed that some beneficial effects of the two- phase fluid could be demonstrated in cutting tests. The Phase II effort will expand the development program to allow the formulation of optimal compositions.